SBIR Phase I: Sustainable Decentralized Greywater Recycling System

The broader impact/commercial potential of this SBIR Phase I project is to develop an affordable and sustainable solution for treating and recycling household greywater. It is vital to conserve fresh water and reduce water waste. Household greywater recycling can reduce water consumption by treating gently used water and reusing it for everyday cleaning and personal hygiene. This project will develop and optimize several configurations of a novel plant-based greywater treatment system for household use. The system uses compact, modular containers to be deployed anywhere for easy scaling, and it uses embedded sensors to monitor water quality and system performance remotely. The treated water will meet drinking water standards and the plant-based system can also serve as a private garden or public green space. This technology can improve community resilience to water scarcity.

This SBIR Phase I product advances the translation of a system using compact, modular containers that can be deployed where water infrastructure is expensive, scarce, or compromised. The system protects people from pathogenic bacteria and reduces nitrogen and phosphorus run-off, helping to prevent algal blooms and eutrophication of waterways. Water quality and system performance are monitored remotely using wireless sensors. Research and development for this project will include: 1) optimizing treatment performance to operate at a household scale; 2) prototyping specialized, modular containers; and 3) testing integrated sensors. To optimize treatment performance, key plants commonly used for wastewater treatment will be grown in a natural filtration media composed of various sizes of pumice, then subjected to various types and volumes of greywater. Within the modular containers, various configurations of plumbing, weirs, and air pumps will be tested to optimize oxygenation, filtration, and flow rates. During operation, a combination of sensor readings and professional laboratory testing will be used to analyze and validate water quality, as well as identify water quality parameters most critical for field operation and remote monitoring.